Large Scale Computational Studies of the Structure and Properties of Molecules Containing Heavy Elements

This project in the Theoretical and Computational Chemistry Program will use computational methods to carry out large scale electronic structure calculations in order to quantify the effects of relativity on molecular structure. Properties such as defects and vacancies in large clusters of metal atoms, as well as the mechanism of chemisorption, will be studied. This will enhance our basic knowledge of heterogeneous catalysis. Dr. Ermler is well known for his expertise in the development of methods to incorporate relativistic effects into electronic structure studies. The Stevens Institute of Technology is a leader in the application of computers to scientific investigations. This grant is for supercomputer time at NSF-supported supercomputer centers.